Engineering Research Deployment Teaching Initiative: A Research Deployment Teaching Package for Composites Design

9307785 Tsai Videotapes software,k and manuals will be developed to cover the design process of composite materials and structures. This teaching package is intended to introduce the research results to engineers in industry without prior knowledge of composites. It is hoped that the outstanding properties of composites, namely, high strength, light weight, long life, and low cost, can be applied to civilian and industrial products with the aid of this teaching package.